2015 National Robotics Initiative PI Meeting

This project is to organize and execute the annual principal investigator (PI) meeting for the National Robotics Initiative (NRI). The workshop will bring together all the PIs engaged in the NRI for a two day workshop to discuss research, educational initiatives, and methods for transition of results.

The workshop includes oral presentations by involved program managers, the PIs, a poster session with presentation of all sponsored projects, tutorials, and several keynote speeches. An important aspect of the workshop is program-wide networking and exploration of mechanisms to optimize the results of the overall initiative with respect to research, training, and societal impact.